Coherence Effects in Quantum Optics

Professor Mandel will study some of the most counterintuitive aspects of quantum optics involving nonlocality and entangled quantum states. Mandel's group will carry out experiments on interference effects in light beams which show that even widely separated photons, derived simultaneously from the same light source, will interfere quantum mechanically where no classical analogue exists. The experiments are aimed at a deeper understanding of nonlocality and indistinguishability in quantum phenomena which may point the way to a more general theory of quantum mechanics of which the current version may only be a local approximation.